An Undergraduate Concentration in Parallel Computing

This project enhances the computer science curriculum through the introduction of an undergraduate concentration in parallel computing. The purchase of parallel processing hardware permits the implementation of laboratory experiences in the parallel computing courses, enables larger seminar projects and facilitates independent study. The key equipment consists of a 64 processor, parallel machine, a PARACOM Multicluster, based on the INMOS T800 Transputer. The 64 nodes of this system can be partitioned into sub-clusters and allocated to as many as 4 different users, simultaneously. Each user is able to request allocation and to configure it by selecting a wide range of connection topologies. The system can also be treated as a single 64 processor supercomputer. All of these options are under software control, and the Multicluster is accessible from the existing undergraduate network of Sun Microsystems workstations. The equipment can be expanded as the demand for parallel processing grows. The award is being matched by an equal amount from the principal investigator's institution.